Mathematical Sciences: RUI: Numerical Solution of the Eigenvalue Problem of Symmetric Rationally Generated Toeplitz Matrices

This research program is concerned with the properties and computation of the eigenvalues and eigenvectors of Toeplitz matrices (whose element in the ith row and jth column depends only on i-j). Such matrices arise naturally in the discretization of differential equations as well as from series representation of analytic functions. The main focus of this research program is to reduce the computing cost for the eigenvalue problem to a point where it is essentially independent of the size of the matrix. Eigenvalue problems for Toeplitz matrices arise in all fields of applications. The results sought by this research program will benefit all areas of science and engineering.